Flow Control for High - Speed Networks

9305018 Agrawal The principal objective of this research is to investigate the role that feedback can play at the cell level control in ATM networks to affect explicitly the amount of excess traffic released into the network. The thesis is that feedback based schemes can achieve better throughput -- packet loss/delay tradeoffs than schemes that are essentially open-loop at the cell level. A layered framework does require the network elements to provide feedback on their congestion level to the access regulators. In that sense the schemes explored in this research augment the currently emerging framework. The principal investigator describes a precise mathematical framework for the work and identifies several time constraints and parameters critical in assessing the efficacy of feedback based schemes. ***